Abelian varieties and Neron models

DMS-0302043
Lorenzini, Dino J.

Abstract

Title: Abelian varieties and Neron models

One of the main problems in arithmetic geometry is the determination
of the set of rational solutions of a system of polynomial
equations with rational coefficients.
One of the most successful techniques
in the study of such a set of solutions is to reduce the equations modulo
a prime p and to study the set of solutions of
the latter system of equations. It turns out that,
in many situations, it is possible to describe a canonical way
of reducing the equations modulo p. When A/K
is an abelian variety, this canonical reduction is called the N\'eron model
of A/K. This reduction is the object of study in
Lorenzini's first three research projects in this proposal.
For instance, attached to any Neron model
is a finite group called the group of components. When the reduction is purely
additive, it is conjectured that there are only
finitely many possibilities for this group once the dimension g is fixed.
Lorenzini's proposed research will
shed more light on this conjecture and on other special
phenomena that arise when the reduction modulo a small prime p
is not `good.'

For centuries, human beings have been fascinated with
solving Diophantine equations, named after the Greek
mathematician Diophantus who lived
in the third century AD. The field of Diophantine equations
has taken added significance in the modern world as
it finds applications in a variety of areas, including
encryption. Since the time of the Greeks, mathematicians have developed
sophisticated tools to aid in solving equations. This investigator
has developed some such tools, and is currently working on
further contributions to this field.